Turning to Digital Government in a Crisis: Coordinating Government, Business & Nonprofit Services in Response to the World Trade Center Attacks of September 11, 2001

EIA-0221927
Sharon Dawes
SUNY Albany

Turning to Digital Government in a Crisis: Coordinating Government Business & Non-Profit Services in Response to the World Trade Center Attacks of September 11, 2001

This Small Grant for Exploratory Research will examine what government agencies did in the midst of and immediately after the attacks on the World Trace Center, and the role of information technologies in the events. Starting at Pier 92, where New York City's Emergency Operation Center was re-established, this work will document the network of relationships, information flow, and actions through interfiews with key participants. Research topics and policy questions will be identified.